CIFAC: Computer Incident Factor Analysis and Categorization Project

The computer Incident Factor Analysis and Categorization Project, CIFAC, will accomplish three primary objectives: 1) Identify key managers within the sample ( college, university and corporate settings) and establish trust relationships and authorizations to permit sharing of data regarding computer-related incidents; 2) Refine and test a model for categorizating computer-related incidents and facilitate cross-organizational sharing; and 3) Identify and investigate factors that are related to the occurrence of computer-related incidents within the study sample. The CIFAC project will analyze the relationships between incident types and the occurrence of such incidents. The work of CIFAC will provide data to encourage best practices for protection from, and prevention of, computer-related incidents within electronic environments.